Expression of Human Tyrosine Hydroxlase cDNAs using Baculovirus Vectors: ROW

The PI is proposing to utilize a novel expression system (baculovirus vectors) to determine the functional significance of the various isoforms of tyrosine hydroxylase. Tyrosine hydroxylase (TH) is the rate-limiting enzyme in catecholamine biosynthesis and, as such, is a crucial and pivotal point in many physiological processes. Recently, the PI's laboratory has isolated full length cDNAs of the multiple human subtypes. To investigate whether these different isotypes have altered functions, the PI will subclone the cDNAs into the baculovirus expression vectors. This system will generate large quantities of the different forms of TH to permit kinetic and structural analyses. This system will also provide the means to use site- directed mutagenesis to assess the role of particular amino acids in phosphorylation, catalysis, cofactor binding, etc. Results from these studies will delineate structural requirements for TH regulation and expression and will help understand mechanisms of activation and possible roles in atypical catecholamine function.***//